Spectroscopy at Coe: Unifying Student-Faculty Research in Physics and Chemistry

The Coe College REU site has a focus on spectroscopy in physics and chemistry. It emphasizes different techniques and projects in the areas of Optics (laser induced time of flight mass spectroscopy, IR spectra), Materials Science (thermal properties, density, glass modeling), Acoustics (of free reed musical instruments), Gas Phase Chemistry (atmospheric science in a bottle), Environmental Chemistry (water pollutants and iron catalysis), and Chemical Synthesis (organic hypervalent compounds) . The site is very friendly and student centered, with students working directly with professors and alongside more senior research students. The site also offers a rich variety of research-grade equipment for student training. Other activities will include weekly seminars, the chance to make presentations at the end of summer, and many social diversions in a rich research culture.